Mathematical Sciences: Conference on Graph Labellings and Their Applications; March 1991; Boston, Massachusetts

The theory of graph labellings and their applications is an important mathematical subject. It interacts with graph theory, combinatorics, group theory and non-associative algebras. The study of graceful directed graphs leads to the construction of a non-associative algebraic structure called a neofield. Graph labellings has applications to other branches of mathematics, computer science, engineering, operations research and social sciences. This grant will partially support a conference on graph labellings and their applications to be held at Northeastern University in March 1991. The conference will feature hour talks by three experts in the field and will bring together additional leading researchers who will present shorter talks. There will be strong emphasis on applications and possible interactions with industry. The informal structure of the conference will provide an excellent opportunity for young researchers and graduate students to become involved in this rapidly growing area.